REU: Genetic Variability in Bryophyte Populations

The evolutionary significance of sex is a central problem in evolutionary ecology. There has been a proliferation of models which predict the relative benefits of sexual vs. asexual reproduction but few empirical tests exist. The goal of this research is to provide just such a test, using the forest bryophyte, Tetraphis pellucida. Bryophytes are ideal systems in which to test hypotheses concerning the effectiveness of sexual or asexual reproduction in different environments since they exhibit a high degree of habitat specificity and wide array of reproductive modes. It has been demonstrated that levels of genetic variability in some asexual species are equivalent to those of sexual species. Asexual reproduction does not necessarily yield reduced genetic variability, especially in those organisms in which the germ line is not isolated from somatic mutation. The traditional view that sex enhances fitness through the creation of genetic diversity may be inappropriate in bryophytes. The long-term goal of this research is to examine the possibility that somatic non-germ cell mutation, as a source of genetic variability, may equal or exceed that of sexual recombination in mosses. Certain background information is required prior to such an investigation. This Research Planning Grant would permit Dr. Kimmerer to complete preliminary studies and to develop methods which would support the long-term goal. The activities proposed here constitute essential preparation for a major research effort.